Electrothermal Atomization and Surface Chemistry

In this project in the Analytical and Surface Chemistry Program of the Chemistry Division, Prof. Holcombe will use graphite furnaces to study means of improving trace metals analysis, and also to study gas/solid interactions. Graphite furnace methods are already among the most sensitive available for detecting trace metals in biological and environmental systems, and Holcombe's work will improve the reliability and generality of the approach. Theoretical calculations will aid in understanding the chemical and physical processes occurring. Among the novel features of the research, Holcombe will use temperature-programmed static secondary ionization mass spectrometry to characterize the furnace surface as first solvent, then the analytical species are vaporized. Spectral interpretation and collection of basic surface kinetics data will be emphasized. Monte Carlo calculations of gaseous dynamics will be carried out on a supercomputer to couple the fundamental data to predictions of analytical signal behavior. If successful, inexpensive methods for ultratrace quantification will be at hand, which will compete in performance with the much more expensive plasma/mass spectrometric techniques now in use.